RUI: Acquisition of a Controlled Environment Chamber

Controlled - environment chambers will be obtained for use in botanical studies. Research by A.J. Shaw will investigate mechanisms of sex ratio determination in natural populations of bryophytes. Single spore cultures will be isolated from a population and differences between male and female gametophytes in ecologically important traits will be assessed. J.M. Bernard will investigate the effects of temperature on life history characteristics, including inorganic nutrition and carbon allocation, in wetland plants, Growth chambers will allow Dr. Bernard and collaborating undergraduate students to expand previous field studies by testing hypotheses under controlled conditions. I.A. Tamas will investigate mechanisms underlying the effects of indoleacetic acid (IAA) on plant morphogenesis using transgenic tobacco plants. Dr. Tamas' work requires tissue culture under axenic conditions as well as the growth of transgenic whole tobacco plants. B.P. Smith will investigate interactions between environmental factors, such as humidity and parasitism by mites, in determining mortality in populations of mosquitoes. Dr. Smith's research requires close control of temperature, photoperiod, and humidity.